CAREER: Exploring the Structure of M Theory

Research in theoretical particle physics will include work on superstring
theory, and quantum field theory. Techniques which do not require
approximations will primarily be used to explore the structure of both
superstring theory and quantum field theory: particularly through the use
of symmetry, and via the interplay between superstring theory and quantum
field theory. Quantum field theory is the conventional framework for
describing elementary particles and their interactions. On the other hand,
superstring theory is the exciting candidate for a quantum theory of
gravity, which also provides a unified framework for all the fundamental
forces. Understanding the complete structure of superstring theory is of
central importance in our attempt to answer basic questions about the nature
of space-time and gravity.